Dynamic Buckle Propagation in Submarine Pipelines

In the proposed research, the dynamics of buckle propagation and arrest in submarine pipelines will be investigated using a combination of numerical, experimental, and analytical approaches. The objectives of the research include the advancement of the understanding of the buckle propagation and arrest phenomena, and the development of relatively simple models which could be used in practice to design safe and efficient pipeline systems. The research will consist of three main tasks. In Task 1, pipeline buckle propagation and arrest will be studied by means of a three-dimensional, highly accurate finite element model which will account for the energies dissipated by both circumferential deformations and longitudinal bending and shearing deformations. Task 2 will involve the experimental testing of representative pipeline-arrestor systems under dynamic conditions. Finally, Task 3 will deal with the development of simplifies models which will represent with acceptable accuracy the effects and relative importance of the major factors that influence the buckle propagation and arrest phenomena. These simplifies models are primarily intended for practical design purposes. This research will provide results that will lead to the development of more economical and efficient designs of offshore pipeline systems, thus enhancing the availability of a stable energy source.